SBIR Phase I: Cosmic Ray Neutron Sensing for Soil Water Measurements at Irrigation Decision Resolution

The broader impact/commercial impact of this Small Business Innovation Research (SBIR) Phase I project is a touchless, crop agnostic, automatic, always on, non-drifting, and cost-effective way of measuring soil moisture in large fields with data specific to each irrigation zone. The goal is to enable irrigators in water-scarce environments to maximize yields given the water available, and to mitigate the impacts of drought and aquifer reduction by enabling irrigators to calibrate their systems to the precise needs of the plants. The impact of this system is to maximize productivity of irrigation water, reducing waste and costs for crop growers and other irrigators. The commercialization of this product will provide the data needed for precision irrigation to respond to daily ground water needs, broadly reducing water consumption in agriculture and other markets. This technology translates a known methodology for soil moisture monitoring used by researchers and academics into a tool that delivers actionable data to end users that steward the world’s water resources.

The goal of the proposed research and development is to verify that data from an arrayed set of smaller Cosmic Ray Neutron Sensing (CRNS) systems, ingested into an interpolation algorithm, can provide a soil moisture heat map with resolution at the level of each irrigation point for water measurements in the field. This project will remove the main technical risks associated with applying the CRNS methodology to a sub-field measurement scale, providing actionable data through granular moisture analysis. This data will be compared with a similar heat map generated by a multi hour, high labor assay using a manual probing system. This comparison seeks to support automated, precision irrigation systems to minimize water usage and correct for overwatering. The main technical hurdles that will be addressed include: the data collection from an array of smaller-form-factor CRNS systems that are placed on the field at the spacing of the desired measurement resolution; integration of neutron count data over the large temporal scales that are necessary to overcome the noise associated with the less efficient detectors; and the ability to provide the necessary temporally-changing information that is relevant to the irrigation manager.